CAREER: Enriching Conversational Information Retrieval via Mixed-Initiative Interactions

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

It has become clear that providing access to information through natural language conversations will play a significant role in the future of search technology. This will be enabled by developing efficient and effective conversational search engines. Existing systems are generally designed based on a query-response paradigm, in which the user initiates the interaction by submitting typing a word or phrase, and the system responds with one or more documents. This process repeats itself until the user either receives a useful response or terminates the search session. This is not an optimal design for interaction. A better approach would be to create search systems that operate like a conversation. In a conversational search systems, for instance, the system may ask a clarifying question or can recommend new information even though it is not an explicit response to the search query. A conversational search system, the conversation should yield the information that is needed to facilitate the ultimate goal of user satisfaction. The mentioned query-response paradigm does not support these natural conversational interactions. This CAREER award aims to advance the state-of-the-art by envisioning solutions that go beyond this query-response paradigm.

To achieve this goal, this project studies theoretical and machine learning solutions for generating and handling mixed-initiative interactions in information seeking conversations. In more detail, this project explores the following three research thrusts: (1) developing theoretical foundations for measuring mixed-initiative information seeking conversations; (2) developing models for clarifying the user's information needs which is considered as the most common mixed-initiative interaction type; and (3) developing models for proactive informational contributions to ongoing conversations. In addition to these algorithmic and modeling contributions, this project also develops a number of invaluable resources for advancing the field of conversational information retrieval, including a conversational scholarly assistant agent that will be used as a tool for online experimentation and public data creation.